Evaluating Quality of Teachers and Teaching in Science and Mathematics Education: Use of Surveys and Data Systems to Evaluate Quality of Preparation, Development & Practices

This project proposed by the Council of Chief State School Officers (CCSSO) will collect and
analyze data from sample surveys and data systems towards three goals: (1) evaluate the quality of initial
preparation and professional development of math and science teachers in the nation and by state, and
assess trends toward improved preparation, (2) assess change in the quality of teaching practices being
used in schools in relation to science and math education standards, and (3) establish a web-based system
for collecting data and evaluating the quality of professional development activities with science and
math teachers, using criteria based on recent research on quality programs. This will be led by CCSSO with assistance from an expert panel, and a subcontractor organization, Wisconsin Center for Education Research (WCER).